Integrating Social Impact and Ethics into the Computer Science Curriculum

9354626 Martin The purpose of this proposal is to develop a plan and materials for integrating social impact and ethics topics across the computer science curriculum. It will address the two major problems that hamper the implementation of an across-the-board curricular change: The lack of materials that can be adapted or adopted into the existing CS curriculum and the lack of awareness and expertise on the part of most CS faculty regarding the need and methodology for presenting such material in their courses. The project is comprised of three interrelated tasks: 1) define the content of teaching modules to be developed that will facilitate the presentation of these topics; 2) develop the actual modules that can be disseminated as a teaching kit to interested CS departments and faculty members; and 3) develop a pilot faculty enhancement seminar that can be presented for interested CS faculty members to prepare them to use the materials. The first task will be implemented as follows: a two-day working conference of experts in ethics, social impact, and computer science curriculum will be convened to determine the appropriate content for the teaching modules. They will discuss possible topics for a freshman computers-and-society course, the traditional computer science core courses, and the senior design course. The expected outcome of this conference will be consensus from this group regarding which topics, how much time, and the level of such topics that should be included in the CS curriculum. The second task will be implemented as follows: Based upon the recommendation of the working conference, teaching modules will be developed that can be used together as a single course or independently within a number of courses across the curriculum. These modules will include scenarios, exercises for discussion and written comment, and teaching strategies for presenting the topics. The modules will be developed for a freshman course, use in computer science cor e courses, and use in a senior design course. These modules will be sent out for comment and pilot testing by computer science professors. A kit of teaching modules will be developed for general dissemination. The third task will be implemented as follows: Based upon the materials developed, a pilot two-day faculty enhancement seminar will be developed and conducted to provide guidance to computer science professors regarding how to effectively use the materials. Based upon results from the pilot seminar, a kit for faculty enhancement seminars will also be developed for general dissemination. ***y